Research Training Group in Plant Cell Biology

This award provides funds for the establishment of a Research Training Group in Plant Cell Biology. The faculty group is a mixture of outstanding senior and junior investigators who come from a variety of disciplinary backgrounds, but share a common interest in cell biology. The funds will provide stipends for graduate students, will support research participation by undergraduate students, will defray part of the cost of the trainees' research and will enable the trainees to attend scientific meetings. In addition, funds will be used to purchase specialized research equipment to be used by trainees, and to bring investigators from other research and academic institutions to the Davis campus for seminars and symposia. In recent years, the use of new techniques for microscopy and the use of genetics and biochemistry has led to significant new knowledge of the architecture and function of the cell. Much of this progress has come through study of microbial and animal cells. The growth of knowledge of such features particular to plant cells has lagged. There is now a significant need for the training of new researchers skilled in the study of cell biology of plants. This award to one of the country's most outstanding groups of plant cell biologists should help to address the need.